RUI: Explaining Group Behavior

Dr. Weirich is refining a common method of explaining group behavior that appeals to the course of action that a group would agree upon if conditions were ideal for reaching an agreement. In particular, he is specifying the course of action that a group would agree upon in ideal conditions. Dr. Weirich's approach, in contrast to other game theorists looking at this question, is what he calls weighted utilitarianism which uses more properties of a group than standard proposals use to determine the action that the group would agree upon in ideal conditions. Specifically, it uses interpersonal utilities and power structures. It is like utilitarianism except that it weighs utilities according to the social power of individuals before adding utilities. Dr. Weirich's earlier formulations of weighted utilitarianism imposed a restriction to bargaining problems in which there are no incentives for the formation of factions or coalitions that would splinter the group of bargainers. He has now removed this restriction. For this purpose, he has introduced a new conception of a stable agreement. According to it, being a stable agreement is similar to being an agreement that is in what others have called the bargaining set. He incorporates some refinements that come out of the recent literature on decision stability. In accomplishing this work, this project puts one of the most fruitful methods of explaining group behavior on a sound foundation.